SBIR Phase II: Mesh Generation for High-Order Finite Element Methods

This Small Business Innovation Research (SBIR) Phase II project will develop technologies to generate meshes over general three-dimensional domains that are appropriate for high-order finite element analysis. A current stumbling block to the wide adoption of high-order finite element techniques is the lack of automatic means to generate appropriate curved meshes. This project will develop a new and innovative procedure for the effective generation of these types of meshes.

The commercial application of this research is the integration of CAD technologies with advanced automated simulation techniques to be used within engineering design processes. These tools will reduce the time and costs associated with performing engineering analysis during design and increase the accuracy of the predictions obtained.